Marine Geological Samples Laboratory: Graduate School of Oceanography, University of Rhode Island

Summary: This award is to partially support operation of the marine core and dredge repository at Oregon State Univerity.